Eighteenth Century Electricity Kit

The Bakken: A Library and Museum of Electricity in Life locatedin Minneapolis, Minnesota will prepare a model for teachingelectricity by building twenty prototypes of an eighteenthcentury electricity kit. Comprising of easily assembled parts,the kit will include a cylinder electrostatic generator, a leydenjar, an electrophorus, an electrometer and guides for teachersand students. Accompanying the materials will be a 30 to 40minute video depicting original experiments performed oneighteenth century electrical apparatus in the Bakken collection. This demonstration and the hands.on activity kit are targeted forgrades 7.9. The Bakken's collection of rare books and instruments create acenter for scholarly research in the history of science andmedicine. Specifically for teacher, the Bakken's historicalapproach to scientific learning will promote a betterunderstanding of physics and will provide materials that canintegrate easily into present science curriculum.